CAREER: Signal Processing for Software Radio Wireless Systems

The steadily decreasing cost of wireless mobile communications and its growing deployment have resulted in its increased popularity. The trend towards software radio base-station, one such instance, opens up a new avenue of possibilities for innovative baseband signal processing technologies in wireless communications which in turn, introduces new challenges in academic research due to the complex and interdisciplinary nature of practical systems. The development of future high performance wireless systems requires the integration of technological advances that span a broad area of communications and signal processing subjects. This research involves the development and design of a wireless communication laboratory, and the implementation of a high performance antenna array CMDA wireless network. Focussing on critical issues like complexity and robustness, the investigator seeks theoretically sound and algorithmically feasible solutions to the multipath fading problem unique to wireless mobile systems. Key to the new system is a self-adaptive CDMA receiver that is capable of tracking environmental variations without the use of training sequences. The novel methodologies developed here take advantage of both spatial and temporal diversities in a unified fashion, thereby allowing optimum performance to be realized without introducing undue complexity.